Improved Undergraduate Analytical Chemistry Through Use of Atomic Absorption Spectrometry and UV-Visible Spectroscopy

The equipment requested will be used to support revision in quantitative and instrumental analysis for chemistry courses leading to certificates and associate degrees in Environmental Technology and also for students transferring to four-year institutions. The addition of atomic absorption spectrometry and UV-visible spectrometry close the gap between Brookhaven College's current instrumentation and instruments found in modern industrial laboratories. The new instruments will better prepare students for typical, work-related tasks in environmental sampling and measurements. The instrumentation will be used in both analytical and general chemistry courses.